Fracture Mechanics of Laminated Composites with TranslaminarReinforcements

9732887 Sankar Numerical and analytical models, guided by the understanding of the physics, are developed to predict the effects of translaminar reinforcements (TLR) on the fracture toughness of composite laminates. The effectiveness of the reinforcements is characterized both at material scale and structural scale.These studies aid in the design of laminated structures including the selection of TLR materials and their areal fraction. ***